Academy for Software Engineering Educators and Trainers

ABSTRACT
0542681
Laurie Williams
North Carolina State University

A special one-day Academy for Software Engineering Educators & Trainers (henceforth referred to as
the Academy will be offered on the day prior to the start of The Conference on Software Engineering
Education and Training (CSEE&T). The purpose of the Academy is to provide an opportunity for software
engineering educators and trainers to learn from master instructors in a highly dynamic, hands-on,
interactive environment. The Academy will provide a learning opportunity to PhD students who will be
entering academic careers in the near term, new faculty members, and mid-career faculty members who
are beginning to teach software engineering course(s). Subsequent to the Academy, Academy attendees
will participate in CSEET conference sessions, providing further educational opportunity and exposing
them to the software engineering education community and to integrating research and education in their
careers. This purpose of this proposal is to seek funding for two US student and three US new faculty
Academy attendees.
Intellectual merit criteria. The attendees of the Academy will obtain essential knowledge on structuring
software engineering courses. The students of Academy attendees will gain from the attendance of their
instructor. Additionally, attendees will gain exposure to the software engineering education research
community which will help them integrate research and education in the future. NSF is focusing on this
integration. PI Williams is the program chair of the CSEET conference for 2006. She has been on the
program committee for this conference in 2002, 2003, and 2005 and presented a keynote at CSEET
2005. The Academy is an innovative means of instructing and preparing new software engineering
faculty. Students and new faculty interested in obtaining NSF funding for the Academy will apply for
funding. The CSEET steering committee will chose five of these applications for funding. Students will
submit receipts to be reimbursed. Necessary administrative resources for this project will be provided by
North Carolina State University.
Broad impact criteria The purpose of the academy is to improve attendee understanding of software
engineering topics that are taught in university and industry courses. These activities promote teaching,
training, and learning. In our selection process, we will focus on increasing the participation of women
and underrepresented minorities. Additionally, we will focus on the selection of attendees from institution
where alternative funding is less likely to be available. The Academy will enhance the infrastructure for
new faculty to obtain guidance on teaching software engineering courses. Academy instructors will be
encouraged to share resources (presentation slides, webcast) on the conference web site. Additionally,
resources can be cross-posted on the Open Seminar for Software Engineering, a freely-available
software engineering web resource. The Academy will prepare faculty for teaching software engineering
courses. Society will benefit from having better prepared students who are taught by these faculty
members.